Contextual Research Topics in STEM Education - Empirical Studies- The Ohio STEM Leadership Network: A study of Factors affecting Implementation, Spread and Sustainability

The Center for Elementary Mathematics and Science Education at the University of Chicago in partnership with the Batelle Center for Mathematics and Science Education Policy at Ohio State, will conduct a study that examines the factors affecting the implementation, spread and sustainability of innovative high school teaching and learning in Ohio. Specifically, the project examines the five STEM Platform Schools and their accompanying hubs within a larger Ohio STEM Learning Network (OSLN) project. These schools exemplify innovative practices in STEM teaching, learning, and school governance. Research questions include: (1) the status of implementation plans in each of the five schools as measured against their theory of action; (2) factors that contribute to or inhibit implementation; (3) factors that affect "spread" to other schools; and (4) factors that affect sustainability of the reforms. The study includes both qualitative and quantitative data collection at the school, hub, community, and network levels.